Engineering Research Equipment: High Performance Liquid Chromatograph for Biochemical Engineering and Environmental Engineering Research

9802747 Schall This equipment grant is to provide a high performance liquid chromatographic (HPLC) system which is to be used for several research projects. These include: 1) Protein Crystallization; The Effects of Protein Impurities; 2) Treatment of Aqueous Organic Wastes by Catalytic Oxidation; 3) Use of Site-Directed Mutagenesis to Improve Protein Crystallization; and 4) Optimization of Mammalian Cell Culture Conditions for Protein Production. ***